Vascular Plants of the Intermountain Region (U.S.A.)

An illustrated vascular flora of the Intermountain Region of western United State is being prepared with descriptions, full synonymy, and commentary as necessary. The Intermountain Flora is a six-volume series treating the natural floristic region consisting of Utah, nearly all of Nevada, Southern Idaho, Southeastern Oregon, and small parts of Wyoming, California, and Arizona. Five volumes have been completed. The final volume has been begun and will be completed in the proposed three years. Preparation of the Flora entails extensive study of the plants in the field as well as in the herbarium, and also requires a thorough bibliographic inquiry. Aside from its intrinsic scientific interest, Intermountain Flora is of fundamental importance in the preparation of environmental impact statements in connection with possible mining or other industrial development in the region, and is a source of information on threatened and endangered species. Land managers working for the Forest Service, Bureau of Land Management, Fish and Wildlife Service, and National Park Service also find Intermountain Flora indispensable.